Enhancement of the Laboratories for Immunology and Related Cell and Molecular Biology Courses

The goal of this project is to restructure the existing Immunology course so as to include a laboratory section, and to update and expand the quality of the laboratory experiences offered in such other courses as Microbiology, Biochemistry, Physiology, Hematology, and the Undergraduate Seminar, through the purchase of equipment needed to improve the curricular contents. These changes are expected to enable students to meet the challenges of a technological society. Among the instruments required to accomplish these course improvements are chromatographic, fractionating, ultraviolet analysis and recording equipment, electrophoretic apparatus for the analysis and isolation of antigens, and two good research microscopes for the study of the histology of lymphoid tissues. This project is having an impact on Hispanic students majoring in science and those in the University's pre- health track.